Combinatorics in geometry and representation theory

The PI proposes to work on problems relating combinatorics with geometry
and representation theory. Together with co-workers, the PI aims to
develop a theory of Schubert calculus on the affine Grassmannian from
both a combinatorial and geometric perspective. This includes the study
of affine Schubert polynomials in both homology and cohomology and
associated formulae such as Pieri rules. In the combinatorial side,
affine generalizations of classical algorithms such as Schensted
insertion will be studied. On the geometric side, the PI will focus on
understanding different positivity properties geometrically and to
connect the affine Grassmannian with Macdonald polynomials. Another
part of the PI's work will focus on questions related to Schur
positivity. The PI with collaborators have recently resolved several
open Schur positivity problems that attracted a lot of attention,
including conjectures of Fomin-Fulton-Li-Poon and of Okounkov. They plan
to apply their techniques to prove several other prominent conjectures
concerning Schur positivity. In another direction, the PI with
collaborators, aims to study the Kazhdan-Lusztig cells in type B with
unequal parameters using the combinatorial algorithm known as domino
insertion.

The PI's research is in the area of combinatorics. Combinatorics is an
area of mathematics concerned with counting and has received a lot of
attention recently due to its applications to probability, cryptography
and computer science. The PI's research is concerned with connecting
the discrete (or finite) problems in combinatorics with complicated
structures in geometry and algebra. In geometry, infinite and
continuous objects are studied together with a notion of space and
dimension. In algebra, symmetries are studied using systems of
equations. The PI's research should reveal deep relationships between
these areas and is likely to have an impact on all three fields.